Increasing Access and Diversity in Technology Programs

This project that builds on a previous CSEMS scholarship project will award 55 two-year scholarships to full-time students in Civil, Mechanical, Electronic Engineering, Machine Manufacturing, and Microelectronics who demonstrate both academic potential and financial need. Additionally, twelve one-year scholarships will be awarded to S-STEM scholars who will pursue a bachelor's degree at Oregon Institute of Technology (OIT). A special effort is being made to attract academically talented students from underrepresented groups. The project is increasing the quality and number of student support structures available for retention and career placement. Among the strengths of the project are the organization of the scholars into cohorts supported by activities such as individualized advisement and faculty mentoring, the use of lessons learned from the previous CSEMS project to improve the probability of success of this project, and local industry committment to fund the fourth year of studies for students transferring to OIT in pursuit of a bachelor's degree.